Collaborative Research: EPIIC: Cross-Continental Collaboration Coalition (C4)

The Cross-Continental Collaboration Coalition (C4) project is an interdisciplinary endeavor among five primarily undergraduate, four-year institutions—California State University, Chico; University of Central Oklahoma; Central Washington University; State University of New York (SUNY) Oswego; and Weber State University—to address the multifaceted challenges encountered in higher education today. One of the central challenges the investigators aim to tackle is the imperative to strengthen industry partnerships. Recognizing the pivotal role of industry collaboration in driving innovation and enhancing educational outcomes, each institution within the C4 cohort is committed to establishing and expanding regional innovation partnerships. These partnerships will serve as conduits for knowledge exchange, collaborative research projects, industry-informed curriculum realignment and experiential learning opportunities for students. By forging strong ties with industry stakeholders, the project seeks to ensure that educational programs at the C4 institutions remain relevant and responsive to the evolving needs of the workforce. Offering innovative programs tailored to meet the needs of employers, enhances the employability and career readiness of the C4 graduates. Another critical area of focus for the C4 project is the enhancement of research capacity. Robust research capabilities are essential for advancing knowledge, driving economic growth, and addressing pressing societal challenges. To this end, the C4 institutions are investing in research infrastructure, faculty development initiatives, and interdisciplinary collaboration platforms. By fostering a culture of innovation and inquiry, the investigators aim to position the C4 institutions as leaders in cutting-edge research and technology development. In addition to these institutional-level initiatives, the C4 project emphasizes cohort-wide collaboration and knowledge sharing. Through regular meetings, workshops, and joint initiatives, members of the C4 cohort exchange best practices, co-create innovative solutions, and support one another in achieving shared goals.

The C4 project emphasizes cohort-wide collaboration and knowledge sharing. Through regular meetings, workshops, and joint initiatives, members of the C4 cohort exchange best practices, co-create innovative solutions, and support one another in achieving shared goals. This project will contribute to the advancement of "best practices" in key areas of higher education and industry collaboration. Through collaborative efforts, participating institutions will identify and implement effective strategies for building vibrant regional innovation ecosystems and fostering interdisciplinary research and education. By leveraging the collective expertise of faculty and industry partners, the project will generate new knowledge, technologies, and approaches that can be adopted and replicated by other institutions facing similar challenges. Moreover, by integrating experiential learning opportunities and industry partnerships into academic programs, the project will enrich student learning experiences and prepare them for successful careers in dynamic and competitive fields. The potential impacts of the proposed project extend across multiple dimensions, including institutional, regional, and societal levels. At the institutional level, the project will enhance the reputation and competitiveness of participating institutions by strengthening their ties with industry partners and expanding their research capabilities. Additionally, by aligning academic programs with workforce needs, the project will enhance student outcomes and promote social mobility. The investigators expect this collaboration to impact the lives of 11,425 students annually. Regionally, the project will catalyze economic development by fostering innovation and entrepreneurship, creating job opportunities, and driving technological advancements. Furthermore, by promoting collaboration and knowledge sharing among institutions, the project will contribute to the broader landscape of higher education, inspiring innovation and excellence in teaching, research, and community engagement. Overall, the project will leave a lasting positive impact on participating institutions, their communities, and the higher education sector as a whole.